Molecular Topology and Development in a Photosynthetic Membrane System

Chlorosomes are light-harvesting structures attached to the inner surface of the cytoplasmic membrane in green photosynthetic bacteria. The polypeptide composition of Chloroflexus chlorosomes consists of three major protein components and a fourth minor polypeptide. Functional roles for all four proteins have been tentatively assigned. This project is aimed at determining the role played by these proteins during the development of the photosynthetic apparatus. Recombinant genetic techniques are being used to isolate the genes for two major proteins components of the chlorosome. The gene for one chlorosome protein (Mr 5700) has already been cloned: it contains a coding region for a carboxyl-terminal extension that is not present on the mature protein and which may be important for targetting the protein to the appropriate assembly site within the chlorosome. This investigation deals in detail with the genetic structure, organization and regulation of genes encoding chlorosome proteins. The green and purple photosynthetic bacteria possess a simpler type of photosynthesis than that occurring in higher plants. In these bacteria light is harvested as an energy source to support the synthesis of sugars and other organic components of the bacteria from atmospheric carbon dioxide, but oxygen is not produced. Because of their relative simplicity these bacteria provide useful model systems which are often more amenable to detailed analysis than are higher- plant systems. Studies of bacteria have made major contributions to the advancement of fundamental knowledge of photosynthesis. Dr. Fuller's investigations provide essential information about the structure and function of the biological compounds and complex cellular structures that are responsible for the useful harvesting of sunlight by green bacteria.***//